Upgrading the Computational Instrumentation of the Inter- University Consortium for Political and Social Research

Funds are being furnished for the purpose of upgrading the computational instrumentation of the Inter.university Consortium for Political and Social Research. The goals are to improve the functional capacity of the consortium as a facility for research and instruction in the social sciences; to improve its capacity to provide services in a more effective fashion; and to prepare it to capitalize on advances in computer and information technology as such advances occur and are deemed applicable. Through this effort, inflationary and other pressures to increase membership fees will be eased, and consequently the number of colleges and universities able to subscribe to the consortium will continue to include the less well.to.do and more geographically remote along with the large, more centrally positioned institutions. The overall effect will be to maintain and perhaps even increase the number of social scientists with access to the consortium, and to open new windows of opportunity for exploitation of the consortium's vast data holdings .. thus serving to expand and sharpen our understanding of societal processes. The consortium is an organization with over 320 college and university affiliates. It acts as a repository for and distributor of computer.readable data amenable to social scientific analysis. Such data include, but are not limited to, data collected under NSF grants that are deemed useful for secondary analysis (the consortium is the preferred repository under the Division of Social and Economic Science's new archiving policy), and public use data files placed under consortium distributorship by federal statistical agencies. Data from a great many other sources also form part of the consortium's multifaceted archives. Through the work of the consortium, technical and economic obstacles to data use and data sharing are substantially reduced, the use of data is effectively democratized, the utility of costly data collections is increased, and greater research and instructional "payoff" is gained. Perhaps even greater benefits accrue from the value of the consortium as a resource for scientific verification and replication, and from its intrinsic character as a provider of quantitative information on social phenomena from more than one perspective. The recommended award will furnish the funds needed to replace obsolete computer equipment and capitalize upon emerging technologies in such areas as optical scanning, optical storage, and data transmission. Other approaches to storing, transmitting, and otherwise accessing archived data (CD ROM and LAN, for example) will be explored and utilized in accordance with the judgment of experts.